CISE Research Instrumentation: ATM Testbed for Multimedia and Distributed Computing

CDA 9514898 Jain, Raj Panda, Dhabaleswar Arora, Anish Page, Thomas, W. The Ohio State University Columbus, Ohio ATM Testbed for Multimedia and Distributed Computing This research proposes to establish an ATM Networking Testbed. The testbed is targeted to provide networking research infrastructure to enable experimental research in the areas of ATM networking, ATM switch testing, parallel computing, distributed computing, and multimedia. Specifically, the testbed will be used for the following four research projects: a) Development of performance metrics and benchmarks for various components involved in ATM networked systems including switches, network interface cards, end-system hardware, and operating systems; b) Development of new mechanisms and primitives for communication and synchronization over networks of workstations (NOWs) connected with ATM interconnection; c) Development of an environment for simulation and implementation of computer protocols that are subject to faults, security attacks, and real- time constraints; and d) Reinventing of the familiar spreadsheet paradigm to enable transparent parallel computation and distributed sharing, circumscribed by the simple yet powerful programming and modeling paradigm. The National ATM Performance Test Lab established by this proposal will provide impartial performance measurements using standard benchmarks for equipment from different vendors. This will also allow the creation of a vigorous center for experimental research in high-speed multimedia networking and parallel processing over ATM-connected networks.